Problem Solving and Critical Thinking in Mathematics: Professional Development for Elementary and Middle School Teachers

This is a three year project to provide 540 teachers and 180 administrators with educational experiences and guidance on how to improve the programs at their schools in the areas of critical thinking and mathematical problem solving. Each year there is an initial training session offered to the participants and this is followed throughout the year with teams of teachers, administrators, and the project staff working together to become more knowledgeable in and devise methods to enrich the problem solving aspects of the programs at the target schools. The Corridor Partnership has effectively brought together members of the local business community, scientists from the regional research laboratories and professional organizations, and professional educators at all levels to provide support and guidance to this project as well as to past efforts of the Partnership. Among these efforts, for example, are programs that were conducted during the fall and winter of 1986 which serve as pilot projects for the proposed efforts.